Mathematical Sciences: Conformal Field Theories Associated with the Monster Simple Group

The principal investigator will work on conformal field theories associated to the Monster simple group. These will provide the first constructions of conformal field theories on an orbifold corresponding to cyclic groups of order greater than two. Constructions based on all 23 Niemaier lattices will be investigated, with the expectation that clues to a covariant construction of the Moonshine module based on the 26-dimensional Lorentzian lattice will emerge. The principal investigator will also investigate the genus zero partition functions associated to certain sporadic groups which he has recently discovered. Some recent ideas involving the interplay between algebraic varieties and group representations will be pursued. This research is concerned with problems in group theory. In classifying the finite simple groups, a particularly large group which is called the Monster simple group was discovered. Subsequently, it has been found that the Monster simple group has interesting connections with the study of Lie algebras and with mathematical physics. This particular project is aimed at better understanding these relationships.